Clitics and Grammatical Theory

9876456
ANDERSON
This project explores what appear to be deep and surprising connections
between two areas of linguistic structure that are superficially quite
diverse: on the one hand, clitic elements (such as Romance pronominals) and on
the other, formal markers of the properties of words ("morphemes"). A theory
of the structure of words and of their relations to one another, developed in
previous research by the PI, has as one important component the claim that
clitics serve a function within the phrase which is closely parallel to that
filled by affixes (and other morphological markers) within words. This
research develops and explores the consequences of that observation.

Clitic systems may involve the interaction of many areas of grammar, as in
Tagalog, where independent principles of syntax, phonology, and phrasal
morphology combine to yield an intricate set of patterns. This research will
enrich our understanding of a number of areas of linguistic structure
(phonology, morphology and syntax) and their inter-relation, as well as
refinements in a range of current linguistic theories. As a by-product of
research into these theoretical questions, the project will also result in
descriptive studies of languages with rich but poorly documented systems of
clitics, such as Kurdish and Breton.